Group Travel to the 13th Triennial Meeting of the International Society on General Relativity and Gravity; Cordoba, Argentina; June 28 - July 4, 1992

Travel funds are awarded to enable 15 U.S. scientists to attend the 13th triennial meeting of the International Society on General Relativity and Gravity in Cordoba, Argentina, from June 28 to July 4, 1992.